INSPIRE Track 1: Microbial Sulfur Metabolism and its Potential for Transforming the Growth of Epitaxial Solar Cell Absorbers

Abstract

This INSPIRE award is partially funded by Biological Oceanography Program in Division of Ocean Sciences, in the Directorate of Geosciences; the Electronic and Photonic Materials Program in the Division of Materials Research, Directorate of Mathematical and Physical Sciences.

A simple idea motivates this project: By characterizing the mechanisms underlying pyrite film deposition by subsurface microbes living at hydrothermal vents, can approaches be developed to controllably grow high-purity pyrite films that could be used to produce low-cost photovoltaic solar cells? Recent in situ studies at hydrothermal vents have found "subsurface" microbes associated with the deposition of large crystalline metal sulfides (up to 1.1 millimeters), including iron pyrite. In laboratory incubations, vent microbes specifically deposited pyrite (FeS2), devoid of Zn, Cu and other metals that were abundant in the liquid media. Abiotic incubations did not exhibit this specificity. The investigators hypothesize that, in situ, microbes deposit pyrite via a number of potential processes, including a physiological process called extracellular electron transfer (EET), wherein microbes shuttle electrons to/from minerals. In situ, EET-enabled microbes may use conductive minerals to electrically access oxidants, and deposit pyrite on these surfaces. Vents are thus natural bioelectrochemical cells, which grow metal sulfides via microbial and abiotic electrochemical processes, though the details and mechanisms remain to be determined. This project is aimed at elucidating the mechanisms underlying microbial FeS2 pyrite bio-deposition, and assessing how microbes might be used to deposit epitaxial films for solar cells absorbers. FeS2 pyrite has been identified as prospective low cost solar absorbers because of their abundance, suitable band-gap (~0.95 eV) and high optical absorbance. Microbial pyrite film deposition at lower temperatures (<100 C) might offer a radically new, low cost approach to creating large area PV solar cells. Nothing is currently known about the mechanisms underlying microbial pyrite growth, though the large crystal sizes suggest epitaxial deposition is favored over re-nucleation implying that, once nucleated, epitaxial growth can occur. A series of experiments using natural vent microbial communities and isolates will be conducted to determine: A) environmental factors that influence bio-deposition; B) potential molecular mechanisms; C) the microstructural and electrical properties of these films; and D) whether bio-deposition by single species or consortia yields films of highest purity, size and homogeneity.

Intellectual Merit: The project is both highly-integrated and transformative. It is relevant to our understanding of microbial sulfur cycling, as little is known about how microbes mediate crystalline pyrite formation and the degree to which this influences sulfur isotope geochemistry. Molecular studies will be used to interrogate relevant microbial metabolic processes and constrain the possible mechanisms of pyrite film growth, which is critical to advancing our ability to grow FeS2 films for device applications. Understanding the effects of substrate crystallography and electrical conductivity on the growth morphology will further inform our knowledge of microbial pyrite deposition. Notably, this research differ from existing biomimetic approaches. The studies are not focused on crystal growth via tethered peptides or synthetic extracellular matrices. Rather, they aim to advance our understanding of natural biodeposition, use the insights gained to grow pyrite materials and devices.

Broader Impacts: Apart from the exciting and possibly transformative impact on creating alternative photovoltaic solar cells, this activity offers an unusual opportunity to perform research across current intellectual boundaries of microbial sciences and electronic / engineering materials. Graduate students will be thoroughly engaged in both these areas, with extensive mentoring from the PIs and the postdoc. Via numerous Harvard and NSF programs, the investigators will engage undergraduates in the research. Moreover, Professors Girguis and Clarke will use this project to teach a new course to freshman, focused on understanding and communicating interdisciplinary science. In this course, and in collaboration with the Harvard Museum of Natural History, students would design a public exhibit on how microbes make minerals and electricity, which would be evaluated by the museum staff and the some of the ~200,000 annual visitors on its efficacy, thus enabling the Harvard students to learn firsthand about communicating science, and informing the public about the relationships between science and engineering.